"A Bayesian Approach for Shape Extraction & Scene Segmentation of 3D Textured Scenes From Image Data"

This project will contribute to the theory of Markov texture models under perspective projection. Dr. Cohen is extending his work on Markov-based texture identification and segmentation to include 3-D perspective distortions, thus developing theoretical tools for texture analysis and establishing a baseline technique to which other perspective texture modeling approaches can be compared. The Markov texture models may be of particular use in machine vision and in computer graphics.